Paleoclimate Records from Lake Sediments in a Cape Dyer- Quvitu Transect, Eastern Baffin Island, Arctic Canada

Abstract ATM-9503279 Miller, Gifford University of Colorado Title: Paleoclimate Records from Lake Sediment in a Cape Dyer- Quvitu Transect, Eastern Baffin Island, Arctic Canada The sensitivity of the polar regions to increased greenhouse gases is described by global circulation models. Rapid changes in Arctic boundary conditions that influence climate, such as vegetation type (especially tundra vs boreal forest), extent and duration of sea ice and seasonal snow cover, and continental ice thickness/ice berg discharge may have had dramatic impacts outside the Arctic in the past, and may have similar future impacts. These impacts underlie current interest in the role of the Arctic in the global climate system. A primary objective of the PALE Initiative (Paleoclimate from Arctic Lakes and Estuaries) is to obtain and analyze a series of lake sediment cores that span the circum-arctic region. This project focuses on the 0-20,000 yr time period, with opportunistic sampling of older records and high-resolution younger records where encountered. Research will continue lake-coring research efforts, including the interpretation of pollen, diatom, sedimentological and isotopic analyses. Work also continues to develop additional proxies for past climate utilizing the isotopic composition (C- and O- isotopes) of aquatic macrofossils and specific classes of dissolved organic matter preserved in lake sediments and changes in diatom floral assemblages.